Acquisition of a Parallel Processing Facility for Astrophysics

AST-0216105
Draine, Bruce T.

The Principal Investigator and his team will create a powerful parallel-processing facility for research in astrophysics on problems, which do not require "shared memory" or ultra-fast inter-processor communication. Studies will include: Light scattering from irregular interstellar grains, cosmological structure formation, dynamical evolution of gaseous protoplanetary accretion disks, and several other compelling astronomical sciences research topics. The system will contain 96 dual CPU "slave" systems with a total of 192 Central Processing Units, and 192 gigabytes of RAM with a 3.8 TB disk.
***